Organization of the 1996 Ultrafast Phenomena Topical Meetingto be held in Coronado, California

The 1996 Ultrafast Phenomena Topical Meeting will be held May 28- June 1 in Coronado, California. This conference will feature a series of presentations on the latest developments in the field of ultrafast laser science, emphasizing both technological developments and basic seientific studies. Topics in the program cover a broad range of multidisciplinary topics in areas of chemistry, biology, physics, and materials science.